VPW: Functional Cytomorphology and Phylogenetic Signifi- cance of the Coelomic Heart-Kidney Complex in the Lesser Molluscan Classes, Aplacophora and Polyplacophora(Sys Biol)

It is proposed to investigate two lesser classes of molluscs, the Aplacophora and the Polyplacophora, using electron microscopy to ellucidate a new set of characters for the heart- kidney complex to use in the analysis of molluscan phylogeny. Both classes have been placed near the roots of the various phylogenetic trees that depict the origin of the molluscan classes. Studies proposed will include anatomical relationships not yet determined, as well as patterns of new characters. With access to living organisms and ultrastructural fixation of the heart-kidneq complex, identified specific characters to be studied will be: 1) heart musculature, 2) ultrafiltration sites, 3) pericardial epithelium and its contractility, 4) hemocyanin blood pigment, 5) pore cells in the pericardial tissues, 6) relationships of the coelomic body caviites with the coelomducts (kidneys), and 7) secretory and absorptive cells in the kidneys. The patterns found in representatives of these two phyla will be compared to what is known in the better-studied classes of molluscs to establish character polarity between primitive and derived states. These findings, along with what is known in the out group phyla associated with the Mollusca (especially the phylum Sipuncula) will contribute to the eventual formulation of a parsimonious phylogeny of the phylum Mollusca. This research will focus on the systematic biology of molluscs, reflecting new techniques and new thinking in approaches to investigations of the evolution of molluscs. These include analyses of data by looking for relatedness between taxa, understanding and weighing whether a character is primitive (plesiomorphic) or derived (apomorphic), establishing shared characters between large and small groups of organisms, utiliizing electron microscopy to investigate characters at the cellular and tissue level, and seeking relatedness as expressed in the genetic code. The effort furthers VPW program objectives to provide opportunities for women to advance their careers in science or engineering through research, and to encourage other women to pursue careers in these areas through the investigator's enhanced visibility as a role model on the host campus. The proposed activities which contribute to the second objective include: lecturing in two undergraduate courses (an advanced undergraduate course in invertebrate zoology, and a field course in natural history of the Washington coast), and interacting in the laboratory component of each class; offering a seminar on Marine Biodiversity for graduate students; organizing faculty/student "bag lunch" meetings to highlight issues facing women in science; helping to establish a visiting woman scientist program; and working with students on research projects.